NRI: FND: Robotic Collaboration through Scalable Reactive Synthesis

As human-robot collaboration is scaled up to more and more complex tasks, there is an increased need for formally modeling the system formed by human and robotic agents. Such modeling enables reasoning about reliability, safety, correctness, and scalability of the system. The modeling, however, presents a daunting task. This research aspires to formally model scenarios where the robot and the human can have varying roles. The intent is to develop scalable methodologies that will endow the robot with the ability to adapt to human actions and preferences without changes to its underlying software or hardware. An assembly scenario will be used to mimic manufacturing settings where a robot and a human may work together and where the actions of the robot can improve the quality and safety of the work of the human. The project is a critical step towards making robots collaborative with and responsive to humans while allowing the human to be in control.

This research will develop a framework for human-robot collaboration that integrates reactive synthesis from formal methods with robotic planning methods. By tightly combining the development of synthesis methods with robotics, it will pursue the development of a framework that is intuitive and scalable. The focus is on task-level collaboration as opposed to physical interaction with a human. The framework takes as input a task specification defined in a novel formal language interpreted over finite traces: a language suitable for robotics problems. It produces a policy for a robotic agent to assist a human agent regardless of which subtask or execution order for this subtask that the human agent chooses. The policy includes both high-level actions for the robotic agent as well as corresponding low-level motions that can be directly executed by the actual robot. One key novel component of the approach is the automated construction of abstractions for robotic manipulation that can be used by synthesis methods. The scalability of the proposed work will be investigated along different dimensions: the extent to which symbolic reasoning can be applied, the development of new synthesis algorithms, and the proper use of abstractions including their automatic refinement and the construction of factored abstractions. The trade-offs in using a combination of partial policies and replanning will be investigated as well as how to account for incomplete information due to incomplete observations. The theoretical contributions will be implemented on real robot hardware and demonstrated in experiments that are analogous to real-world assembly tasks.